Modulated Coding For Frequency-Selective Multipath Channels

This research involves the mitigation of multipath interferences
in a frequency-selective fading channel. As broadband digital wireless
communications is more demanded than ever, such as wireless image/video
web browsing and wireless data transmission, the technical challenges
are exponentially increasing. One of such challenges is that, when the
bandwidth of a channel becomes wider, there are more severe multipaths
in a wireless system. This implies that the multipath interference
mitigation becomes more important than ever.

Modulated coding (MC), a convolutional coding defined on the complex
field, has been recently proposed by the PI to optimally mitigate
intersymbol interferences (ISI) when the ISI channel is known at both
the transmitter and the receiver. The advantage of MC is that, since
the arithmetic operations of both MC and ISI are over the complex field,
they can be naturally combined together, which provides the convenience
of the optimal MC study for a given ISI channel. Since the encoding
simplicity of the MC, it is also convenient for further adding a
conventional error correction coding (ECC) before the MC. It has been
shown that the combined MC and turbo coding of an ISI channel may
outperform the AWGN channel capacity at low SNR. As an example, for the
two tap ISI channel [0.7071,0.7071], the bit error rate is 0.00001 at the
code rate 1/4 and the SNR E_b/N_0=-1.15 dB, which is above the AWGN
channel capacity. The disadvantage of the previous MC study is that the
transmitter needs to know the ISI channel, which although may be possible
for some applications, such as storage channels and wireline channels,
may not be practical for some other applications, such as wireless
channels. The aim of this proposal is to optimally design and update MC
without the full knowledge of the ISI/multipath channel at the
transmitter with applications, in particular, in wireless communication
systems. Due to the simple structure of MC, the MC update at the
transmitter is possible, which is unlike the existing coding schemes.